Seismic-While-Drilling for the Ocean Drilling Project

This project will be directed at developing a `seismic-while- drilling' capability for the Ocean Drilling Program. In this technique the seismic source is the drill bit and the sound is received on geophones on the seafloor. The advantage of this technique is that no additional ship time is required to acquire the seismic data.